Oceanographic Instrumentation

The Rosensteil School of Marine and Atmospheric Sciences at the University of Miami has requested several items of oceanographic instrumentation to be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the two research vessels the institution operates. A substantial part of the ships' operating schedule during 1990 is in support of NSF-sponsored research projects. The instrumentation will also increase the capabilities of the ships and of the University to support research and engineering activities. The instrumentation includes: -Scintillation counter for measurements of radio-isotope tracers and other chemical parameters, -Disk drive, laser printer, terminals and other peripheral computer equipment for increasing the reliability and performance of shared-use, sea-going computing capabilities, -Spare circuit boards for the Acoustic Doppler Current Profiler system that makes precision measurements of subsurface circulation features, -Deck unit for controlling CTD that obtains detailed profiles of seawater conductivity and temperature as a function of depth, -Fluorometer and transmissometer for measuring chlorophyll and other optical properties in the water column, -Dissolved oxygen probe and precision temperature sensor for improving dissolved oxygen and temperature measurements at depth in the water column, and -Conductivity fast response sensor for attaching to the CTD. The instrumentation described above will increase the capability of the Institution to support NSF-sponsored research and engineering projects.